The Dynamics of Combustion Systems With Swirl and Vortex Breakdown

ABSTRACT

CTS-9904327 ZVI RUSAK

The goal of this effort is the development of an experimentally verified model for the dynamics of combustion states with swirling flows and to provide an understanding of the physical mechanisms leading to instabilities in lean, premixed combustion systems. Analyses combine classical asymptotic approaches with modern tools from functional analysis, dynamical system theory, and the theory of nonlinear partial differential equations. Emphasis is on combustion and flow conditions for which bifurcations may occur and where small- or large-amplitude instabilities may evolve. Boundary conditions are taken from experimental observations. Extensive numerical computations are conducted, in particular of the far-from bifurcation behavior of the system. Theoretical and numerical results are compared with data from Louisiana State University for model and code validation, and from prediction of instabilities or transients that affect the combustion process.

Instabilities that develop in lean, premixed combustion systems with swirl present severe design limitations in modern, low-emission systems, especially when vortex breakdown is exploited to stabilize the flame and enhance combustion efficiency.